Non-Invasive Temperature Estimation and Control in Titanium Casting

This project is to develop an accurate, non-invasive method for the estimation of molten titanium temperature in the Vacuum Arc Remelted (VAR) casting process; and, a control strategy to assure target pour temperatures by adjusting arc parameters (voltage and gap) and the pour initiation instance. The estimation and control algorithms will employ a constitutive-empirical model of thermal energy conservation in the VAR process. This model will be continuously updated by analyzing in-process measured signals, such as the arc power, or temperature and flow of water that cools the crucible and electrode gripper. In particular, the actual temperature of the melt flowing over the crucible lip will be measured during each pour by infrared pyrometers to close the feedback loop in the estimation procedure and assure accurate temperature prediction for the next execution of the process. On-line identification of crucial physical properties, such as the thermal resistance between the melt and cooling water, will facilitate predictive control of the arc power to accomplish target pour temperatures despite strong disturbances present in the process. A prototype system will be developed and implemented in a plant that manufactures titanium castings for aviation, defense, space exploration and medical applications.

This project should produce the prototype of a non-invasive temperature estimation and control system valuable to quality control in titanium casting. The developed algorithms and system architecture may be applicable to other high performance casting processes as well.